Nonlinear Studies in Magnetic Garnet Films

This research inolves the study of nonlinear phenomena in ferromagnetic thin films. In thin films there are a samller number of magneto-exchange modes which simplifies the comparison with theory because the truncation process (of the Hamiltonian) becomes simpler. The plan is to study samples with different thicknesses thus having different densities of magnetostatic modes, determining the dependences on magnetization, anisotropy energy, temperature and frequency. There will also be an effort to replace some of the magnetic ions with nonmagnetic ions to study the effect on the spinwave dispersion coefficient. In addition to mode locking and modes suppression the effects of noise will also be investigated. The analytical model will be extended to incorporate more modes to obtain better results. The effects of hidden modes will be considered, and the validity of the random phase approximation will be examined, with the possibility of removing this requirement on the non-excited modes.